Evaluating the Effectiveness of Drought Response Strategies: A Knowledge-Based Approach

9701834 Shepherd This research planning grant will put in place the foundations for developing a knowledge-based model to evaluate the effectiveness and reliability of water shortage response plans during a drought. It will follow a threepart research strategy to : a) formalize the expertise of water agency personnel to evaluate drought response strategies; b) determine the timing and phasing of drought response plans to minimize adverse impacts from water shortages; and c) develop a knowledge-based model for testing and refining plans for drought and water shortages. The expected products include new methods for evaluating and improving drought response plans, a peer-reviewed journal article and the preparation and submission of a full proposal to NSF. ***